PYI: The Electrophysiology of Human Attention

This action recommends a Presidential Young Investigator Award for Dr. Daniel Barth. Dr. Barth's primary research interest is in the mechanisms regulating brain cell excitability and their role in normal and pathological human cortical function. For his dissertation he conducted a series of studies to explore the neuromagnetic fields produced outside of the head by both normal sensory processing and pathological epileptic discharge. This work used a newly developed superconducting biomagnetic sensor called the Superconducting Quantum Interference Device (SQUID) to map extracranial magnetic fields. From these neuromagnetic maps, Dr. Barth demonstrated that it was possible to accurately localize restricted electrical brain currents within the cranium. Dr. Barth pioneered the use of neuromagnetometry to study human focal epileptic disorders. Neuromagnetic field maps were effectively used to determine the location of an epileptic focus within the brain for neurosurgical evaluation, and to noninvasively study dynamic interactions between brain regions during epileptic seizure discharge. Dr. Barth's neuromagnetic investigations also extend to animal studies where he is exploring the neurophysiological basis of brain magnetic fields and using this knowledge to study slow and rapid changes in cellular electrical currents that may underlie changes in cortical excitability. Here, the response of the brain to sensory and direct cortical stimulation are under investigation as well as the brain's response to drugs that induce or reduce focal epilepsy. Dr. Barth presently holds a joint appointment in the UCLA Departments of Neurology and Psychology, with neuromagnetometry laboratories in both departments. His work has included the improvement of mathematical models for interpreting human neuromagnetic fields, for localizing pathological brain activity and studying multiple simultaneously active brain regions. Dr. Barth is continuing his investigation of the physiological basis of slow changes in brain excitability in animals and relating this work to recent neuromagnetic studies of information processing in the human brain.